POWRE: Combinatorial Representation Theory of Lie Superalgebras

The PI (Chanyoung Lee Shader) will use her POWRE award to enhance her research and teaching with the following projects and activities:

(1) visit Professors Georgia Benkart and Arun Ram at the University of Wisconsin-Madison to continue the joint research in Combinatorial Representation Theory of Lie Superalgebras, and to learn new projects
and techniques in the related areas of research;
(2) travel to conferences and pursue joint research projects with several researchers in representation theory of associative and nonassociative algebras;
(3) participate and learn from the VIGRE project at the University of Wisconsin ways to enhance her teaching in Combinatorics and Algebra courses at her home institution, University of Wyoming.

This POWRE project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).